Oceanographic Instrumentation

The College of Oceanography at Texas A&M University will acquire several items of oceanographic instrumentation to be placed in a pool of shared use equipment. This equipment is maintained for use on or in association with the R/V GYRE, a research vessel operated by the University. A substantial part of the ship's operating schedule during 1990 is in support of NSF-sponsored research projects. The instrumen- tation will also increase the capabilities of the ship and of the institution to support research and engineering activities. The instrumentation includes: -Seagoing computer, disk drives and other peripheral equipment for shipboard data management system that is essential for real-time acquisition and display of large data sets, and -CTD system and support structure for obtaining detailed profiles of seawater conductivity and temperature as a function of depth. The instrumentation described above will increase the capability of the University to support NSF-sponsored research, engineering, and education projects.